PostDoctoral Research Fellowship

This award is made as part of the FY 2018 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Ian Charlesworth is "Non-Commutative Probability Theories and Free Entropy." The host institution for the fellowship is University of California, Berkeley, and the sponsoring scientist is Dan-Virgil Voiculescu.